International Travel Grant: U.S. Participation at the 7th International Estuarine Biogeochemistry Symposium, Grimstad, Norway May, 2002

ABSTRACT

OCE-0217902

Twelve estuarine biogeochemists will be selected from the U.S. scientific community to participate in the 7th International Estuarine Biogeochemistry Symposium to be held in Grimstad, Norway in May, 2002. During this meeting, special emphasis will be placed on discussions regarding new results on the biogeochemistry of high and low latitude fjords. In addition, the biogeochemistry of arctic, tropical, sub-tropical and temperate estuaries also will be addressed. Thematically, the symposium will discuss issues such as interactions between organic matter and trace metals, redox boundaries, nutrient control on productivity, climate change effects, experimental design of mesocosms, modeling of sediment-water exchange and new sampling techniques. Results from the symposium will be published most likely in a special edition of the journal Marine Chemistry.